Applications of Aerosondes to Long-Term Measurements of the Atmosphere and Sea Ice Surface in the Beaufort/Chukchi Sector of the Arctic Ocean

The project will develop an Arctic-capable aerosonde, design an instrument package for it, field test the instruments, and collect data in the Barrow, AK vicinity. The aerosonde is an autonomous aircraft that that builds on a design of a smaller platform that has flown in the Arctic. The improved aerosonde will be more robust and have increased navigational as well scientific instrumentation than its predecessor. The improved aerosonde will be able to fly over land and sea ice in order to make measurements of surface and near-surface properties that play a role in redistribution of heat in climate feedback systems. The remotely operated aerosonde also allows measurements to be made without the need of humans entering a very dangerous environment, particularly during the most hazardous time of the year. The aeorsonde will add an important access capability to Arctic research for a wide variety of atmospheric and surface properties studies.